A Novel Chemistry/Materials Laboratory for First Year College Students

The Department of Chemistry at Rensselaer Polytechnic Institute, in collaboration with the Department of Materials Engineering, is equipping a laboratory for a freshman chemistry course that emphasizes materials chemistry. This innovative course uses materials-oriented laboratory experiments that are relevant to the 'real world' and show the beauty, the complexity, and the discovery aspect of science. The grantee is matching this award from non-Federal sources.